Statistics of Worldwide Earthquake Recurrence Series and the (a)periodicity of Large Events

9404962 Ward This research is to analyze the regularity of recurrence of large earthquakes (M greater than 7) from major plate boundaries around the world. Regularity of earthquake recurrence is a critical input into many seismic hazard studies. Many of the previous studies of earthquake recurrence have concentrated on "characteristic", segment-breaking events. However, both the definition of segments and the selection of "characteristic" events are not unambiguous. By analyzing a large number of recurrence series and establishing a set of objective selection criteria, the study will quantify systematically the regularity of large earthquakes. This research is a component of the National Earthquake Hazard Reduction Program. ***